Symposium: Recent Developments in Neurobiology January 2004: New Orleans, LA

Society for Integrative and Comparative Biology
Symposium: Recent Developments in Neurobiology
January 4-8, 2004, New Orleans, LA

Goal of the symposium is to provide experience to in-training members of the profession, in terms of symposium presentation/participation at a national meeting. Another is to expose these individuals to potential employers. We also seek to provide a set of recent printed evaluations papers to the Neuroscience community through the journal papers.

We have included two advance assistant professors in the list of primary speakers, to break with the unwritten "rule" of extending exclusive invitations to more senior investigators. We choose to honor the productivity of these young faculties, and at the same time, contribute a symposium invitation to their upcoming tenure evaluations.